CAREER: A Mesoscopic Approach to the Theory of Optical Microcavities

O239332
Noeckel

The project aims to leverage methods from the theory of mesoscopic
systems, quantum chaos and nonlinear dynamics to advance research in
microphotonics. Microcavities as building blocks of integrated optical devices form
the central application of the proposed research: their spectral, emission and coupling
characteristics will be studied with a combination of numerical modeling and
approximation methods. Pure numerics encounters resource limitations in large,
coupled and fully three-dimensional systems, making approximation schemes
crucial for speedy, goal-oriented design. Among the most widely known such
schemes is paraxial optics, which however breaks down in the resonator
configurations of greatest interest for photonic integration.

The lack of reliable analytical treatments in this regime is the
central theoretical motivation for the proposed research.
Non-paraxiality in microcavities translates into chaotic ray dynamics
when considering the short-wavelength or large-size limit; hence,
approximations relying on large size-parameters bring insights from
nonlinear dynamics to bear on micro-optic design. This parallels
developments in mesoscopic electronic physics where similar
approximations arise in systems whose size falls into the transition
region between quantum and classical mechanics.

Based on this connection, a new course to be developed within the
Applied Physics Master's program will aim at a unified presentation of
photonics and quantum mechanics, utilizing web-based teaching
technology. The latter will be tied to web-based dissemination of the
numerical and analytical techniques developed in the proposed research,
in order to strengthen the student's exposure to issues with broad
interest in optics, nanoscience and nonlinear dynamics.